AMANDA (Antarctic Muon and Neutrino Detector Array) Research

9971390
Price
Dr. Price proposes to perform the following tasks:
1. Construction and deployment of two digital strings in conjunction with LBL
2. Characterize optical properties of ice at various locations at the South Pole and compare the measurements with predictions
3. Search for neutrinos from data collected with existing and new strings
4. Investigate radar tomography as a method for measuring the precise position of string ends
5. Explore ways to identify the three types of neutrinos through their shower development